CAREER: Combinatorial and algebraic models of computation

Gal
CCR-9874862

This project studies combinatorial and algebraic models of computation for Boolean functions. Such models are Boolean circuits and formulae, branching programs, span programs and models of communication complexity. The complexity of computational problems in these models corresponds to their inherent complexity in terms of important computational resources.

The main questions addressed in this research are: finding new methods for proving complexity lower bounds, the role of randomness and pseudorandomness in the complexity of Boolean functions, and issues of fault tolerance in the above models. The educational component of the project includes the development of an upper level undergraduate course on fault tolerance and error correcting codes, and development of a series of graduate research courses in complexity theory.